NSF-BSF: Polytopes and Simplicial Complexes

This award supports cutting-edge research in discrete geometry, more particularly on convex polytopes. Convex polytopes include familiar shapes such as polygons, tetrahedra, cubes, and octahedra, as well as their higher-dimensional analogs. They have fascinated mathematicians since antiquity and continue to play a central role in modern mathematics. A classical starting point is Euler’s formula, which for 3-dimensional polytopes asserts that the number of vertices minus the number of edges plus the number of faces is equal to 2. This formula illustrates a broader theme: even when geometric objects are too high-dimensional to visualize, their structure can often be understood through combinatorial data, such as the numbers of faces in each dimension. Since the nineteenth century, the study of higher-dimensional polytopes has grown into a major area of research with deep connections to geometry, topology, algebra, and optimization, including linear programming.

This project will make progress on long-standing problems and conjectures about face numbers and related invariants of convex polytopes, simplicial complexes, and related topological spaces. A central objective is to understand which face-number sequences can occur, and how algebraic, geometric, and topological structures restrict these possibilities. The projects focus on several important classes of objects, including general convex polytopes that are neither simplicial nor simple, simplicial spheres with additional structure such as symmetry, simplicial balls, and spaces with singularities. The research will use and further develop tools from discrete geometry, commutative algebra, and algebraic geometry, while strengthening existing connections and building new ones between combinatorics and neighboring areas of mathematics. The project will also support the training of graduate students by involving them in research at the interface of combinatorics, geometry, topology, and algebra.